Leadership Development for Middle/Junior High School Teachers

This three-year project initiates a long-range plan of the Wisconsin Academy Center for the Advancement of Science Education (CASE) to develop leadership among Wisconsin's middle/junior high school science teachers and to increase the quality and quantity of field experiences provided students in grades 7-9. The project's major components include: developing increased subject matter competence in field ecology and field earth science; participant development of local field experiences; and developing leadership skills and applying these skills in local community and state-wide professional activities. An active support network will be established between participants and between participants and scientists. Sixty middle/junior high school earth science and life science teachers will be selected over the three-year project, representing 25% of Wisconsin middle/junior high schools. Subject matter will be provided through seminars, workshops, and field experiences led by university, government, and industrial scientists. Participants will have field experiences in the major geological and vegetational provinces of Wisconsin as well as their local area. Current environmental issues will be discussed. Leadership development will be addressed through discussions, readings, and seminars. Stress will be placed on strategies to implement change. Through development of field-based curricular models participants will be introduced to the process of curriculum development. They will be expected to provide leadership in their district as local schools develop a science curriculum to meet the new state guidelines. Participants will apply leadership skills and subject matter knowledge during the project. Each participant will be expected to: conduct local field experiences for their students as part of the curriculum; provide an inservice field experience for elementary teachers and principals; conduct a field experience for community adults; assist their school in local curriculum development; and present a professional paper at a local or state meeting. In addition, each participant will work with master teachers as those teachers work with students and/or teachers in summer programs.